CISE Research Instrumentation: Hardware and Software for Large Scale Projects in Information Mediation, Language Translation and Text Filtering and Retrieval

9422138 Dorr This award is to purchase equipment (cost-shared with The Institute for Advanced Computer Studies (UMIACS) and Department of Linguistics at the University of Maryland) dedicated to support specific projects in the laboratory for Computational Linguistics and Information Processing (CLIP). These projects are in the areas of information mediation, language translation and tutoring, and text filtering and retrieval. The software requirements include large dictionaries, corpora, data models and databases, high-level database query languages, and a Prolog interpreter. Since many of these resources are available only on CD ROMs, the hardware requirements include an optical disk controller and large disks for storage. Also there is a need for two workstations with significant computing power for indexing and processing of text and installation of an object server. Finally, four Xterminals for extensive prototype development and an eye-tracker for testing hypotheses related to the development of psycholinguistically-grounded NLP models are needed. ***